A Study of Air-Sea Ice-Ocean Interactions and their PossibleRole in Detecting Global Climate Change

Climate modeling research has shown that the polar regions of the global climate system are the most sensitive to climatic perturbations. Therefore, it is felt that global climate change will first be evident in those regions of the Earth. In this research program the results of an experiment with a modified version of the NCAR Community Climate Model (GENESIS/CCM1) that includes sea ice, leads and sea ice transport, will be used to determine the sensitivity of the climate to sea ice variations, and to identify variables that, through monitoring, could provide an early warning of global climate change. In this project an analysis of the results of experiments with the GENESIS/CCM1 will be used 1) to determine if the mechanisms of climate change identified in the previous model studies the CCSI model Study occur in the more complex modeled system, 2) to determine the impact of sea ice on the energy and moisture fluxes at the ocean-atmosphere interface and their effect on climate both globally and regionally, and 3) to examine the possibility that the monitoring of variables associated with sea ice, including lead fraction, snowfall, temperatures, and energy and moisture fluxes, could help provide a prediction of future global climate change.